SBIR Phase I: Advanced Ultra Violet (UV) Light Source for High-Precision, High-Resolution Photomask Metrology

This Small Business Innovation Research (SBIR) Phase I project is for the construction of an ultra-high-resolution, high-precision phase-shift measurement tool suitable for metrology of advanced phase-shifting photomasks. A number of semiconductor manufacturers now expect to progress from the 90 nm through the 45 nm nodes using an exposure wavelength of 193 nm. Advanced photolithographic techniques are necessary to print these sub-wavelength features. Phase-shift photomasks, i.e., those in which the optical thickness, as well as the opacity is controlled, are a key reticle enhancement technology. Fast and accurate metrology of critical-layer phase-shift masks is becoming necessary, both for process control and repair validation, but the enabling tools do not yet exist. The goal of this SBIR Phase I project is to develop a new, solid-state, high-repetition-rate actinic 193.4 nm laser with high spatial coherence and stability. This illumination source will be integrated into an existing prototype microscope tool to demonstrate high-speed, highly precise phase metrology suitable for use in the 90, 65, and 45 nm node device generations. The project involves the design and construction of a novel optical-parametric-oscillator and a number of associated nonlinear frequency conversion elements.

The commercial application of this project will be in the semiconductor lithography industry. The semiconductor industry roadmap for the 90 nm mode and beyond requires measurements of photomask optical path difference with sub-0.4 degrees precision. This metrology must be performed at resolution scales consistent with feature sizes of the respective technology nodes, and for both isolated and densely packed structures. No commercial devices yet exist which satisfy these demands. The high-repetition-rate actinic laser source described in this proposal is a key enabling technology for a new high-precision metrology tool. Further, as a high-power stand-alone source, the ultra-violet (UV) laser will meet the associated optical demands of advanced photolithography, including imaging, bulk material and coating analyses, and damage tests.